Traffic Data Acquisition and Analysis Laboratory

This project supports the enhancement of the teaching of transportation engineering at this institution. Computers are integrated into two undergraduate courses covering transportation facility design and operation and transportation systems planning and management. The project makes electronic data acquisition equipment and data analysis software available to undergraduate students for use in class assignments and projects. The equipment made available for this project includes: traffic counting equipment and software; turning movement counter; and in-motion data collection system. This award is being matched by an equal sum from the grantee.